Unification of High Energy and Gravitational Theories

9512732 Cvetic This proposal encompasses the study of theoretical elementary particle physics including theories of supersymmetric gravity. Supersymmetry is an invariance which relates bosons and fermions. Solutions of these theories describing black holes will be investigated, and the general framework of supergravity theories will be analyzed. ***